Locally analytic representations and Langlands program

This research is on topics in the representation theory of p-adic groups
in the context of Langlands program.
It concerns both the classical representations on complex vector spaces
and p-adic representations. In the area of p-adic representations,
the investigator will work with Peter Schneider on problems in the theory of locally
analytic and Banach space representations. This is a new research area, with lots
of open problems. The theory of p-adic representations is totally different from
the classical theory of complex representations. In both theories, we can ask similar
questions, but the answers are often completely different. This research will contribute
to the development of the theory of locally analytic and Banach space representations.
The research in the classical representation theory is motivated by Arthur's conjectures.
The investigator will work with Chris Jantzen on problems related to geometric R-groups
and Arthur packets. In addition, she will study the effects of the Aubert involution on
Arthur parameters and Arthur packets. The local questions considered in the project appear
in the consideration of local factors of terms of Arthur's trace formula. The obtained
information will play a role in future arithmetic questions related to automorphic forms.

Langlands program is a mathematical philosophy and area of mathematical research.
It originates in a series of conjectures formulated by Robert Langlands,
describing deep and hidden connections between number theory, representation theory
and automorphic forms. James Arthur's advanced research resulted in generalizations
of Langlands' conjectures. After decades of mathematical research, it is amazing to see
that Langlands' conjectures turn out to be true in so many different situations.
The unifying principle of Langlands' conjectures is now investigated in a new area:
the theory of p-adic representations. The work of Schneider and Teitelbaum on locally
analytic and Banach space representations is one of the cornerstones of p-adic
Langlands program. The problems in the representation theory investigated by this project
are of importance for Langlands program.